Internet Connection for Villa Maria College

Villa Maria College will use this grant to connect its Buffalo, NY campus to the Internet using NYSERNET, a New York based ISP. Villa Maria College is a two-year college with a wide range of programs. The college needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.